Robotics Lab for Non-Science Majors.

This project introduces undergraduate non-science majors to topics in science and technology through a laboratory experience involving robotics. The equipment supporting this project includes: Rhino Robot mobile and articulated arm robots, pneumatic actuators, ultrasonic ranging devices and visual imaging systems. Laboratory exercises are designed to introduce students to various reference frames, linear and rotational motion, concepts of work, energy and power, feedback control and various sensing devices. This award is being matched by an equal sum from the grantee.